Computational Methods in the Analysis of Enumeration and Counting Problems with Applications to Manufacturing

Research will develop efficient procedures for estimating critical quantities in counting and enumeration problems with applications to manufacturing problems that arise as components of decision making models in management, production and distribution systems. The researchers plan relies on a sampling procedure that derives its advantage by using a Markov chain structure to generate successive samples of the combinatorial objects needed in considerably less computing time than it takes to generate them as independently and identically distributed (i.i.d.) random combinatorial objects. In particular, this generating efficiency appears to increase as the size of the problem increases. Although the generating method also appears to inflate the variance of the overall estimate, preliminary analysis indicates that this inflation is more than offset by the increasingly more efficient generating time, resulting in a highly efficient method of estimating the critical quantities of interest. This method will be develop in the context of counting and enumeration problems especially as encountered in network reliability and feasible flow setups as they apply to manufacturing problems. Research will also be conducted into finding optimal Markovian dependence structures that maximize efficiency, into incorporating a priori bounds into this methodology and into the extension of this technique to other areas such as simulated annealing.